An Interdisciplinary Physical Science Course for Preservice Teachers and General Education Students: Telling and Directing Coherent Stories

Studies have documented that many institutions of higher education offer marginal physical science programs; some offer no physical science courses. Further, a significant fraction of elementary and middle- school science teachers are poorly prepared to teach physical science. This project at California State University Long Beach will develop a new interdisciplinary college-level physical science course, with the clear intention of serving both future teachers and general liberal arts students. The process is widely supported within the university, and has the potential of affecting a significant fraction of California's future elementary and middle-school teachers. The course will change the usual limited and isolated social interaction that is common in introductory laboratories in science, and replace it with a simulation of a more realistic scientific community, one involving the sharing of data, honesty in reporting, and the public "coming together" of participants to make sense of multiple measurements. In general, the new course will connect research in cognitive science and psychology to effective classroom practices for college physical science students. The cost sharing for the project will be twenty-four percent of the National Science Foundation portion.